Graduate Engineer Education for Women, Minorities, and/or Persons with Disabilities

Arizona State University will support six women, minorities, and/or persons with disabilities in an engineering graduate program designed to culminate in the awarding of a doctoral degree to each student. Five outstanding and complementary research areas are proposed in this program. These areas are: (1) Nanoelectronics, (2) Manufacturing Quality Improvement, (3) Telecommunications, (4) Intelligent Vehicle Highway Systems, and (5) Aerospace. Each of these disciplines is headed by a professor who is a recognized authority in his area of expertise. Students will be recruited to the program using a national advertising campaign based on the College's success with the Industrial Fellows Program. Candidates will be invited to campus to meet the faculty, students, and to become acquainted with the research facilities available at the graduate level. Final selection will be made by the departmental graduate committee, in conjunction with the PI's. Immediately upon selection the student will be assigned a mentor to assist in the preliminary phase of his/her program. ASU's effort to recruit underrepresented students is vigorously supported by the state legislature and the Board of Regents who have provided special funds for this purpose.